SBIR Phase I: SQUIREWire 802.15.4 Wireless Sensor Network Solution

This Small Business Innovation Program (SBIR) Phase I project is to conduct a feasibility study for the development of wireless sensor network application for a personal healthcare product that monitors and gives feedback about sedentary work habits. This society is becoming increasingly aware of the toll current work environments have on the physical wellbeing. This project will be an unobtrusive embedded solution and desktop/mobile data analysis application to help people monitor their work patterns so that they can adjust their work environments appropriately. Wireless sensor networks are emerging as a new paradigm for connectivity, data retrieval and systems control for a range of applications from healthcare and environment monitoring to consumer products. This personal healthcare product and enabling technologies will provide the foundation for a wireless sensor network development environment that will be targeted to human centered computing researchers, designers, and manufacturers who need to develop medium to large-scale wireless sensor network projects and products, but do not have access to the engineering expertise that is required to develop such systems.

The broader impact/commercial potential of this project includes extending wireless sensor network technologies into new product domains of personal healthcare and consumer products. Manufactures, researchers, architects and designers have a growing need to use mesh wireless sensor networks to monitor and control complex built environments. Rather than use these technologies for passive monitoring of ambient environments, this project focuses on the human-in-the-loop as an integral component with the agency to change their environment for the betterment of their physical wellbeing. The technologies developed for a mixed-reality game application will be migrated into a robust, user friendly, affordable, and scalable solution for the original equipment manufacturer and business-to-business products and research projects.